PostDoctoral Research Fellowship

This award is made as part of the FY 2020 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Minh-Tam Trinh is " Algebraic Braids in Geometric Representation Theory." The host institution for the fellowship Massachusetts Institute of Technology, and the sponsoring scientist is Zhiwei Yun.